Monge-Ampere Equations and Geometric Structures on Manifolds

Abstract

Award: DMS-0405873
Principal Investigator: John Loftin

A geometric structure on a manifold is a set of restricted
coordinate charts and gluing functions. There are often partial
differential equations which behave well with respect to these
gluing functions, and in turn these PDEs can be used to study the
geometric structure. Dr. Loftin will continue to apply the
theory of Monge-Ampere equations to manifolds with geometric
structure. In particular, the relationship between Goldman's
Fenchel-Nielsen type coordinates on the deformation space of
convex real projective surfaces and the holomorphic coordinates
introduced by Loftin will be further studied. Together with Eric
Zaslow and S.T. Yau, Dr. Loftin will study parabolic affine
sphere metrics on certain affine manifolds with singularities.
These metrics are degenerate real slices of the Calabi-Yau
metrics. Yau, Zaslow, and Loftin will follow the conjecture of
Strominger-Yau-Zaslow to relate these metrics to a larger program
arising from string theory of understanding mirror symmetry of
Calabi-Yau manifolds.

Monge-Ampere equations have an illustrious history in
differential geometry. Yau's celebrated theorem constructed
important notions of distance on a large class of spaces
(so-called Calabi-Yau manifolds) by solving a Monge-Ampere
equation. Dr. Loftin will study Monge-Ampere equations on other
spaces. Some of these spaces are useful in the study of string
theory, a physical theory which proposes a unification of all the
forces in nature. In particular, there are singular Calabi-Yau
spaces which Dr. Loftin, together with Yau and Zaslow, will study
in order to shed light on the physics of string theory. Also,
Dr. Loftin will put also into practice curricular extensions in
teaching precalculus. These extensions were developed in a
program involving other faculty and high school teachers, in
July, 2003, associated with Columbia University's VIGRE program.
He will also continue to develop similar curricular extensions.